Antarctica - Images From the Frozen Continent

Painters Alan Campbell and Colin Campbell will create landscape images and portraits while in Antarctica for about 2 months in 2005. This collaboration between art and U.S. Antarctic Program science will help to expand public understanding of the region and the research. The partnership of art and science will be central to the exhibitions, publications, and publicity flowing from the project.

Along with works from Alan Campbell's earlier antarctic trips under NSF auspices, these activities will produce drawings, watercolors, and oil paintings that tell the story of a full austral summer season in Antarctica. The artworks will include images of the landscape, wildlife, and light of Antarctica and portraits of support personnel and scientists.

Exhibitions in New Zealand and the United States and two books are planned.